Regulation of Muscle Glycogenolytic Complex

This project supports development of a series of in vitro models of the glycogenolytic complex with increasing degree of organization. The models will be based on the known interactions of the enzymes involved in the regulation of glycogenolysis. The models will be expressed mathematically and experimentally tested using assemblies of purified enzymes and other cellular components. Models to be tested are mixtures of phosphorylase kinase and phosphatase; this mixture of enzymes with added regulatory proteins, and complexes of enzymes with particulate glycogen. The models will be evaluated for sensitivity amplification to the signals of effectors, energy consumption of regulatory processes, and their relationship to glycogen particles isolated from muscle which contain the enzymes of glycogen metabolism and regulation. Glycogen is the storage site for sugar in the liver and muscle. Breakdown of glycogen provides energy for activity and metabolism and regulates blood sugar levels. Biochemists study glycogen breakdown because it illustrates several important principles. It occurs by more than one pathway, it is hormonally regulated, and defects lead to human diseases. Current dogma holds that glycogen particles are not multi-enzyme complexes, i.e., have enzymes present in specified ratios. This project uses experimental and mathematic means to test this idea.